Alaska EPSCoR Research Infrastructure

The Alaska Experimental Program to Stimulate Competitive Research (EPSCoR)
project will feature infrastructure enhancements in three research focus areas as
well as strengthen research competitiveness through S&T planning, outreach
and education, technology transfer, targeted hires and faculty development. The
research focus areas are: Infrastructure and Systems for Cold Regions, which
will consider structures that must function at low temperatures and develop new
construction and engineering strategies; High Latitude Environments
Contaminants Consortium, which will involve engineers, biologists and chemists
developing analytical facilities and expertise to address water, ground and
atmospheric contaminants that accumulate at high altitudes; and Integrative
Approaches to Environmental Physiology which will use physiological
adaptations of Alaskan animals to extreme, highly seasonal environments as
platforms for addressing general physiological questions.
Infrastructure enhancements in these areas build on strengths of the three
participating campuses of the University of Alaska (Fairbanks, Anchorage and
Juneau) and are consistent with on-going program development and strategic
plans. Education and human resource programs will support undergraduate,
graduate and postdoctoral students. Partnerships with colleges and rural high
schools having predominantly native student populations will be expanded.
Outreach to the Alaska business community and state agencies will provide
opportunities for planning and development of the state's science and
engineering capacity. The infrastructure improvements will greatly enhance the
range and depth of research projects and improve the state's research
competitiveness.